Turbulence Theory: Approximation of Higher Statistics

Kraichnan

This proposal is for theoretical research on the higher statistics of
Navier-Stokes turbulence. The principal tool to be used is called mapping
approximation. It is a systematic mathematical procedure applied to the fluid
equations of motion. Nonlinear transformations of fields with Gaussian
statistics are exploited. In previous applications to several problems,
notably to the advection of passive or chemically active scalar contaminant
fields by turbulent flows and to Burgers' one-dimensional model of turbulence,
it has yielded quantitatively accurate predictions of statistics that describe
extreme intermittency of small scales. The proposed work involves further
development of mapping approximation and its application to intermittency of
vorticity in incompressible turbulent flows. Ultimate goals include the
determination of scaling exponents for vorticity.

Turbulence, the disordered motion of fluids, is an ubiquitous phenomenon in
geophysics and industry. It has been an outstanding challenge to
mathematicians and physicists for over a century. Examples where turbulence
plays a crucial role are weather systems, airplane flight, the dispersal of
atmospheric pollutants, and industrial chemical reactors. The complexity of
turbulent motion is so extreme that fully detailed computer solutions of real
turbulent flows are not possible; the demands on memory and speed are too
extreme. In order to reduce computation to maneagable size, theoretical models
of the statistics of the smaller scales of turbulent motion are essential. The
research to be carried out under this proposal brings recently developed new
tools to bear on the statistics of small scales. These tools have proved to be
powerful in related problems. Improved models of the small scales of
turbulence that can be used in computer simulations are an objective of this
research.